Survey of Research and Development in Industry: 1991

This action provides for a statistical survey of the scientific and technical resources utilized by domestic companies in the performance of research and development (R&D) activities. This survey will produce measures of the dollar volume of research and development performed, sources of finance, employment of R&D scientists and engineers, and other characteristics of R&D and S&T in industry. Under authority granted by the National Science Foundation Act of 1950, NSF collects and disseminates descriptive economic statistics, as well as other pertinent information, about scientific and technological resource utilization and activities. Data collected by the Survey of Research and Development in Industry, when used in combination with data obtained through other NSF statistical and analytical activities, provides policy makers with an overview of R&D funding and performance in the United States. //